Conference on: Warped Disks and Inclined Rings Around Galaxies; May 30 - June 1, l990, Pittsburgh, PA.

While warped disks and gaseous rings of spiral galaxies are rare, where they exist they can be powerful diagnostics of dynamical processes which apply in all galaxies. They are also being discovered with increasing frequency. This grant provides partial support for an international conference of active workers studying these puzzling objects. The proximity of the Pittsburgh Supercomputing Center to the meeting is expected to stimulate fruitful interactions between specialists in numerical simulation and observers, particularly those specializing in studies of the motion and distribution of neutral hydrogen.